ITR/AP(CCR): Investigation of Computational Optimization in Brachytherapy Cancer Treatment

Investigations of Computational Optimization in Brachytherapy Cancer
Treatment

This project brings together researchers in computational optimization
and medicine to address the fundamental problem of treatment planning for
brachytherapy treatment of cancer. The project involves four avenues of
investigation: 1) Design of realistic and practical mathematical models
based on mixed integer programming (MIP) technology to describe the
physical planning of brachytherapy, which involves the determination of an
``optimal'' configuration of radioactive sources to be implanted in/near
the tumor. 2) Theoretical investigation of the underlying polyhedral
structure of the MIP models via the construction of conflict hypergraphs.
Associated polyhedral implications will be exploited to develop and
implement separation algorithms to assist in the solution process.
3) Develop new computational tools aimed at solving the difficult
dense MIP instances from this class of problems, as well as from other
applications. Computational approaches include matrix reduction
techniques, penalty branching strategies, aggregate branching which
focuses on reduced-cost and multiple branches with sets of variables instead
of variable dichotomy, and generation of strong cutting planes from
hypergraphic structures. 4) Integration of the mathematical models and
computational engine into an expert planning system for use in the
operating room.

The success of the research will lead to important theoretical results
related to integer programming through the hypergrahic constructs;
it will lead to computational advances for solving dense MIP instances,
a characteristic rather different from most industrial applications,
but arising commonly in medical diagnosis and treatment planning problems;
and it will improve the ability to treat patients in the best possible
way. Furthermore, the resulting treatment planning system will serve as a
research tool to push the frontier of understanding for brachytherapy
treatment, opening up the possibility of conducting clinical
investigations which require unbiased plans to be produced within a
short time frame.

Educational outreach involves developing teaching materials related
to the project for undergraduate and graduate students in engineering and
in the medical domain. It also involves training of 2 Ph.D. students in
this multidisciplinary research involving optimization, algorithmic design
and cancer treatment. The Ph.D. research will focus on theoretical and
computational optimization, and in particular, on issues related to the
project herein. Undergraduates and minorities will be involved in the
research experience through undergraduate courses and regular premed and
minority student mentoring. Part of the research project will also be
disseminated in the lectures on information and biotechnology in the
course ``Cancer Biology and Biotechnology'', developed recently by a group
of interdisciplinary faculty researchers at Georgia Tech with a focus on
multi-faceted approaches for advancing cancer technology. Mention of this
new educational effort highlighting applications of engineering technology
in medical/oncological research will be included in possible panel
discussions and in the recruitment of high school students.